Elementary Particle Physics Using Electronic Detectors

9600411 Sculli This grant supports research in elementary-particle physics by three NYU faculty, 2 postdoctoral research associates and a graduate student. Two disparate research activities are supported. First is the continued study of collisions of antiprotons with protons at 2 TeV in the Tevatron collider at Fermilab as members of the DO collaboration. The group's analysis focuses on determination of the W boson mass; its contribution to the detector upgrade is to the new fiber-tracker front-end and trigger electronics. As members of the team constructing the MILAGRO cosmic gamma-ray detector at the Los Alamos National lab site, they are preparing to study cosmic-ray energy distributions and search for sources of photons in the high-energy interval from 1 to 100 TeV. ***